Student Centered Learning in Business Statistics

The learning environment for minority students in statistics and related courses is being improved by using appropriate multimedia classroom technology. Students are more actively involved through increased emphasis on analyzing and solving problems with an ability to interact directly with the instructor in the learning process. Students are encouraged to pool their resources around the computer, working in teams or cooperative learning groups to solve difficult but meaningful problems. Two introductory statistics courses are involved.This project represents the coordinated efforts of the Statistics faculties in the Departments of Information Systems and Decision Sciences and Economics to improve the performance levels of students in Statistics. The objectives of the project are to: utilize advances in technology and results of research to change the teaching method and improve the learning of statistics; facilitate and promote the use of problem solving to learn statistics (including related courses like Operations Research and Econometrics); and encourage and enhance the study of statistics by minorities through identification and reduction of barriers to success.